Robot-Based Explorations in a Liberal Arts Environment

In this project, the department is purchasing a collection of robot kits to enable the incorporation of robot-based activities into undergraduate science courses within a liberal arts setting. The goal is to increase the level of engagement of liberal arts students, particularly women, in the physical sciences and engineering by providing experiences that capture the excitement, spirit, and intellectual substance of these disciplines. The department is developing an introductory robot-based design course that highlights connections between physics, computer science, mathematics, and biology. Additionally, the surprising versatility of robots makes them useful in a wide range of existing computer science and physics courses.